ITR: Research, Curriculum and Partnerships for Broadening the Information Technology Pipeline

EIA-0082915
Schnabel, Robert
University of Colorado

ITR: Research, Curriculum and Partnerships for Broadening the
Information Technology Pipeline

This project supports a collaboration to explore a new multimedia paradigm
for educating students for careers and lives in the networked information
age. Through research and course delivery, this collaboration will explore
new curricula that allow students from a wide variety of disciplines to
obtain the understanding and skills that prepare them to be a part of the
modern information technology workforce. The project will broaden the
information technology pipeline in two critical ways: by increasing the
diversity of academic disciplines and aptitudes from which students can
enter the information technology workforce, and by applying this approach
to a racially diverse population.

The project will develop a multidisciplinary curriculum and research in
technology, arts, and media (TAM). The research associated with the
development and evaluation of the TAM curriculum has four components: 1)
computer and cognitive science research addressing approaches to using
information technology in education that will help determine both the
content and the delivery of the curriculum. 2) social science research
about the impacts of the networked information age upon our society that is
linked to a key portion of the curriculum, 3) education research about the
use of information technology in K-12 education that will impact the
education course offerings of the TAM curriculum, and 4) formative and
summative evaluations of the TAM curriculum in achieving its goals.